Targeted Infusion Project: Leveraging Emerging Technologies to Advance STEM Automation and Cultivating a Talented AI Workforce

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP), through Targeted Infusion Projects, supports the development, implementation, and study of evidence-based, innovative models and approaches for improving the preparation and success of HBCU undergraduate students so that they may pursue science, technology, engineering, or mathematics (STEM) graduate programs and/or careers. Bowie State University will implement a project designed to prepare undergraduate students for careers involving artificial intelligence, automation, and related emerging technologies. The project implementation includes curricular enhancements, establishing a faculty and student research cluster, applied learning opportunities via community and industry partnerships. Anticipated benefits include immersive emerging technology education, increased participation in technical fields, and a more competitive national workforce prepared for technology-driven careers.

The two-year project will develop, implement, and evaluate an integrated institutional model for artificial intelligence and process automation education. Project activities include developing and delivering a major-agnostic interdisciplinary course; integrating learning modules into existing science, technology, engineering, mathematics, and nontechnical courses; providing faculty and graduate student mentoring for undergraduate research projects; hosting annual artificial intelligence competitions; supporting industry-recognized professional certifications; and offering an annual summer camp for school students, including middle and high school students. Evaluation methods will include assessments administered before and after project activities, surveys, interviews, participation records, student products, research outcomes, and measures of educational progress. Findings and educational materials will be disseminated through scholarly publications, presentations, workshops, and institutional networks. The project is expected to generate evidence about effective approaches to integrating artificial intelligence and process automation into undergraduate education, strengthen institutional research and teaching capacity, and provide a transferable model for preparing students for careers in emerging technology fields.